U.S.-China Symposium on Advanced Ceramic Materials, Washington, D.C., September 1987

Objectives and Relevance to Program Objectives: This joint seminar in the field of advanced ceramic materials will bring together top U.S. and Chinese scientists to explore new developments in ceramic materials and to define areas of common interest for future cooperative research. Organized by Eric Cross, Penn State University at University Park, and Van Donsheng, Chemistry Division, Chinese Academy of Sciences, this joint symposium will support the objectives of the U.S. China Program in Cooperative Science by promoting opportunities for cooperation in basic science between scientists of China and the U.S. on projects of mutual interest and benefit to both countries. Merit of Proposal: This symposium will bring together leading experts in the field of cermics and will focus on topics at the forefront of research in ceramic materials. As scientists in both China and the U.S. achieve breakthroughs in oxide ceramic materials with dramatic improvements in high temperature superconductivity, and in recognition of China's leading efforts in oxide growth, it is timely and important to bring together scientists in these two countries to define joint projects which reflect activity at the cutting edge of ceramics research. Funding: This is a new eight-month award under the terms of the cooperative program. The U.S. will be responsible for per diem costs of the Chinese participants while in the U.S. All costs incurred in China will be the responsibility of the Chinese side.